A Generative Expert System for the Design of Building Layouts

This project develops a generative expert system for the design of building layouts; these layouts are treated as "loosely-packed" arrangements of rectangles, which include "densely-packed" arrangements as a special case. In this form, a broad range of applications becomes possible, while the restriction to a basically rectilinear world allows for a rigorous, formalized treatment. The system consists of a robust generator capable of finding all possible arrangements and a tester able to prune the search tree traversed by the generator and to filter out the most promising of "efficient" rectangles, the "orthogonal structure." The tester uses knowledge contained in a knowledge base; it is programmed in a style which allows for an easy expansion and modification of that base, using well-established techniques from the field of artificial intelligence. By varying the knowledge base, the system can be adapted to various problem domains.